The Nutritional Value of Sediment to Deposit Feeders

The principal concept of this research is that the combination of a spring pulse of detrital addition to estuarine sediments and relatively low temperatures maximize the production of animal biomass. The nutritive value of the sediment is hypothesized to be low, except just after the detrital addition in the spring. This study will assess seasonal changes in the nutritional value of sediment under experimental conditions of varying temperature and detrital addition; it will seek to understand how sediment nutritional value changes. The conversion of sediment carbon and nitrogen to animal flesh will be compared with the conversion efficiency from detritus. The importance of the anoxic zone as a factor limiting the depth of feeding access will also be investigated.